Enhancement of Initial Laboratory Exercises in General Biology: A Novel Approach

This award provides funds for the purchase of equipment in the department of Botany at the University of Maryland, College Park. A four week laboratory sequence will be developed in General Biology for undergraduate Science Majors which will challenge students with experimental design, hypothesis testing, observation, measurement, and data analysis and interpretation. Further, this unique experimental approach will provide students with an opportunity to work with sophisticated instrumentation at the introductory level, including phase contrast microscopes, spectrophotometers, centrifuges, and microcomputers. The laboratory sequence will included the kinetic analysis of glucose transport in yeast and an examination of yeast cell structure utilizing phase contrast, darkfield, and scanning and transmission electron microscopy. The grantee institution is matching this NSF award with funds from non-Federal sources.